Conference: Sorting and Intracellular Transport of RNA at the University of California, Santa Cruz on July 16-21, 1994

9415255 Steward This is an award to support a FASEB Summer Research Conference entitled "Sorting and Intracellular Transport of RNA," to be held on the campus of the University of California at Santa Cruz, July 16-21, 1994. This is, to the best of our knowledge, the first conference on this topic to be held anywhere. This is a timely conference on an important and emerging area in cell biology. ***